SBIR Phase I: STELLA – SATCOM TECHNOLOGY OF ELABORATE LUNEBURG LENS ANTENNA

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project include a high performance, low cos, dependable, novel antenna with high data bandwidth in 1000s of Gb (Tb) and high data rate speeds in 1000s of Gb/s (Tb/s). The elevated performance of this antenna, the cost effectiveness due to its 3D rapid prototype printing fabrication, and the easy integration to existing technologies may promote proliferation of wireless communications. The antenna may enable global connectivity and increase access to internet/phone connectivity for previously inaccessible areas of the globe, especially to disadvantaged and underserved communities. The high data bandwidth and speed rates will positively impact the scientific community and technologies based on data transfer such as remote learning, remote healthcare (remote surgery, patient consultation), the defense industry, telework (work from home during this COVID-19 pandemic), etc. The antenna’s technical superiority and low cost support substantial anticipated commercial success.

This Small Business Innovation Research (SBIR) Phase I project addresses critical challenges in the two emerging wireless communications systems: LEO-SATCOM (Low Earth Orbit – Satellite Communications) and 5G mobile phone/internet. This project will develop a unique antenna technology that will be integrated into satellite gateways, 5G ground terminals and also satellites in orbit. The wide aperture angle of the antenna provides a wide scanning angle capability that enables connection to highly inclined satellites. The antenna is also capable of multi-beam analysis to enable the simultaneous tracking of multiple satellites and to insure no down time during handoffs. The radiation beam pattern has excellent characteristics of high gain (Equivalent Isotropic Radiated Power), very narrow beamwidth, and low cross polarization.